1994 Gordon Research Conference on Multiphoton Processes; Colby-Sawyer College, New London, New Hampshire,

This program supports graduate student attendance at the 1994 Gordon Research Conference on Multiphoton Processes held in Colby-Sawyer College in New London, New Hampshire. The conference represents a highly successful merger of both chemists and physicists, expreimentalist and theorists. The conference has attracted a large number of young investigators. Attendance at the meeting is valuable to students and contributes to the vitality of the meeting.